NSF/ARPA Workshop on Visual Information Management Systems

This workshop will be held on June 19, 1995, in conjunction with the ICCV conference at MIT in Cambridge, Mass. The objective of the workshop is to bring together researchers who in the last few years have started addressing problems in Visual Information Management (VIM). Most of these efforts, however, were focussed either on only a small aspect of the problem or a very narrow application. Clearly, visual information management systems encompass central aspects of databases, image processing and image understanding, very sophisticated interfaces, networks and storage systems, knowledge based systems, compression and decompression, and object oriented systems. Without addressing most of these issues, one may either address only theoretical issues, or may work in a microcosm that will, at best, be extremely narrow in its utility and extensibility. Considering the growing need and interest in the organization and retrieval of visual and other non-alphanumeric information, and the insufficient number of academic projects in this area, the workshop on visual information management systems will provide a much needed platform. While VIM is a very broad area, the focus of the workshop is on what researchers in computer vision could contribute. The challange for vision researchers is to develop tools for analyzing the semantic content of video and image, and then representing that content in a way that can be efficiently searched and compared, and finally delivering that content to users in the form a of useful, focused presentation. Computer vision can contribute techniques for semiautomatically and automatically extracting features that will be essential for indexing and query formulation in image and video databases. Computer vision researchers have addressed problems in human and robotic vision for several applications, but very little attention has been given to this new emerging field. This workshop will be exploring computer vision techniques which are going to prov ide the basic foundation for visual information management systems.